Ordered Geometry

The proposed planning grant is aimed at developing a research proposal in the area of Ordered Geometry. The planning stage will allow the investigator to get a deeper understanding of infinite planes and how the notions Archimedean ordered in the sense of Killgrove and in the sense of Priess-Cromps are developed in an ordered affine plane. Ultimately, the investigator is interested in pursuing the question: Do the Cauchy sequence and Archimedean ordered notions imply the Heine-Borel result? The investigation of ordered geometry will be further pursued by considering ordered planes when universally parabolic regions are convex. This will be the preliminary stage to the question: Which Desargues configuration arise? Finally, the investigator will consider the Prenowitz approach to geometry.